Designing a Portable Technical Literacy Course for Use in California

This project is designed to increase the technical literacy and awareness of the general population of Mission College students through cooperation with regional colleges and universities as well as industry. The College plans to develop a course which is easily transportable throughout the State of California. A statewide network is currently in place through which the results can be quickly disseminated. Project activities include outreach to scientists and engineers in the community, collaboration with faculty in various disciplines, visiting counterpart schools, researching topics, experimentation, and the construction of simple prototypes.